SBIR Phase II: Web-Based Manufacturing Performance Management with Multi-Objective, Multi-model Optimization using Meta-Modeling

This Small Business Innovation Research (SBIR) Phase II project will further develop a new Flow Path Management System (FPMS) representing an innovation in manufacturing software that: (1) Extends existing Enterprise Resource Planning (ERP), Supply Chain Management (SCM), and Manufacturing Execution Systems (MES) software by incorporating 'Lean Manufacturing' principles into a set of innovative simulation-based optimization algorithms; (2) Provides millions of dollars in inventory savings to existing and targeted manufacturing customers; and, (3) Is more available to virtual enterprises and smaller manufacturing companies than existing systems in that it can be delivered via the World Wide Web. The focus of this research project is the development of a meta-model-based simulation software for the analysis, prediction and optimization of manufacturing and supply chain processes. This software applies Kriging spatial optimization models - a proven interpolation-based response technique employed successfully in geo-statistics to solve complex and computationally intense manufacturing and supply chain problems.

The technology will be commercialized as a new module within the company's existing software suite, called the Flow Path Management System, and sold through three distribution channels: (1) on-site intranet installations at large companies; (2) delivery as a web service via the Internet to smaller companies; and, (3) licensing the algorithms to larger ERP/SCM/MES customers for incorporation in their software suites.